Contractive Projections, Quantum Mechanics and Operator Spaces

This research plan consists of two themes. The first is concerned
with investigations into the structure theory of injective-like objects in
the category of operator spaces, and involves the theory of
contractive projections on real or complex C*-algebras. The second is
a study of linear and nonlinear representations of the Lorentz group with
an eye towards finding physically meaningful models in mathematical
physics. The link connecting these two objectives is described in the
following paragraph.

Since the pioneering work of Jordan, von Neumann and Wigner in the 1930s,
Segal in the 1940s and 50s, and Alfsen-Shultz-Stormer in the 1970s, Jordan
algebras, and more recently Jordan triples, have been used as a model for
the study of the state spaces of quantum mechanics. On the other hand,
contractive projections have played a key role in the structure theory of
Banach Jordan triple systems, and those which are completely contractive
give rise to injectives in the category of operator spaces (also known as
quantized Banach spaces). The PIs plan to study the fine structure of
contractive projections on operator spaces in order to gain a better
understanding of their role in operator space theory, as well as their
role, together with Jordan structures, in quantum mechanics and
relativity.